Physiology Teaching Laboratory Improvement Project

The award provides funds for equipment to improve the breadth of laboratory experience provided upper division undergraduates enrolled in General, Environmental, Mammalian, and Invertebrate Physiology courses at the University of Southern Mississippi. The vehicle for such training will be a required team taught laboratory course emphasizing experimental approaches to problem solving and featuring a diverse array of laboratory exercises, models and protocols. The instrumentation to be obtained includes refrigerated animal holding facilities, a biological oxygen monitor, physiological recorder with accessories, flame photometer, organ/tissue baths and computer with software. These items will upgrade existing facilities, augment the capabilities (through allowing use of additional experimental models and investigations of new phenomena) and provide opportunities for computer simulation of significant aspects of physiology which are normally impractical to investigate directly in a classroom setting. The grantee is matching the award from non-Federal sources.